PYI: Monte-Carlo Simulations of Rough Surface Scattering Using Finite Element and Finite Difference Methods

The fundamental understanding of wave scattering by random rough surface is important in a variety of engineering and scientific applications. In radio oceanography, for example, radar returns from the sea surface are used to probe ocean wave characteristics. In solid state physics, the theory ofrough surface scattering is used to study quantum scattering of atoms from crystal surfaces. Monte Carlo simulations of random rough surfaces are customarily done with the integral equation and the extended boundary condition methods. We haverecently applied the partial differential equation techniques of finite differences and finite elements in the frequency domain to the problem of one- dimensional rough surface scattering. The attractiveness of these methods is the banded nature of the resulting matrix equation. On the other hand, when these techniques are applied in the time domain, the need of inverting large matrices can be eliminated. In this project, frequency- and time- domain finite difference and finite element techniques will be developed for the statistical analysis of 1-D and 2-D random rough surfaces. Parallel computation algorithms using these techniques and the inverse problem of determining the surface statistics from the scattering responses using neural network techniques will also be investigated.